Affordable Processing and Dynamic Characterization of Sandwich Composite Materials and Structures

This project, involving a collaboration with Auburn University (AU) and North Dakota State University (NDSU), focuses on research related to materials development with inherent passive and active damping, noise and vibration control flexibility in conjunction with affordable processing/manufacturing, and extensive dynamic characterization and modeling. The developed sandwich composite materials and structures can be used in a variety of infrastructures, commercial and defense applications, where composite affordability constitutes a prime area of concern. The expertise that effectively integrates the collaborating team includes the following strengths given by university:
University of Puerto Rico
Passive damping and smart materials characterization
Damage assessment and vibration modeling
Mechanical response
Analytical studies
Nondestructive evaluation of advanced materials
Auburn University
Acoustics and vibration testing,
Active and passing damping
Noise and vibrations control expertise and facilities
North Dakota State University Fargo
Affordable composite materials processing/manufacturing
In-situ sensing
Materials development
Impact and dynamic damage response
The outcome of the project is expected to have wide-ranging technical benefits with direct relevance to industry in areas of transportation (automotive, rail), infrastructure development (bridges, buildings and civil structures), aerospace, ship/marine, and other applications. The project addresses a significant number of doctoral, masters, bachelors, work study, undergraduate researchers, and high school students in the three jurisdictions, as well as under-represented groups.